Constraints on Performance and Pelagic Periods of Larvae

Constraints on Performance and Pelagic Periods of Larvae

Richard R. Strathmann

Many marine animals live on the sea bed as sedentary adults but swim and
are carried by ocean currents as planktonic larvae. Many of these larvae
feed and grow for weeks or months before they can settle on the bottom.
Larval feeding supports growth from a small egg to a larger size at
metamorphosis. There are costs to this means of supporting early growth and
development, however. The longer the period of larval growth, the more
larvae are eaten by predators or carried by currents away from areas of good
habitat on the sea bed.
Many larvae feed by concentrating algal cells and other small particles
of food This food can be scarce, and food-limited growth has been
demonstrated. Maximum rates of concentrating scarce food from suspension
depend on traits of larvae that differ among major groups (phyla) of marine
animals. Because food is often in limiting supply, one might expect larvae
in the same waters, whatever their other differences, to increase their
capacity to concentrate scarce planktonic food as they increase in weight
and energy requirements and in order to achieve greater growth rates as they
develop. Surprisingly, some animals' larvae appear to be poorly adapted to
low concentrations of food. They have a very limited capacity to
concentrate scarce planktonic food, even though they grow from tiny eggs to
much larger juveniles at metamorphosis. Moreover, these larval forms have
remained unchanged during much of animal evolution.
The proposed research tests the hypothesis that food-limited growth
rates depend on highly conserved traits of larvae. The prediction is that
some forms are particularly constrained to slower growth when food is
scarce. Some of these larvae feed with short ciliary bands throughout their
development. These include the larval forms of bryozoans, which are
colonial animals that live on rocks and seaweeds, and nemerteans (ribbon
worms), which are common predators on other small marine animals. The
bryozoan and nemertean larvae do not seem to fit predictions based on the
more extensively studied larvae of molluscs and sea urchins and thus
challenge biologists' understanding of the ecology and evolution of
planktonic larvae. The growth of bryozoan and nemertean larvae at limiting
and satiating concentrations of food will be compared to growth of sea
urchin larvae, whose maximum rates of clearing food from suspension are
greater and increase more nearly in proportion to body mass. If the
hypothesis is correct, then major groups of animals differ in
food-limitation for their larvae, with consequences for death rates and
dispersal of their larvae.
Another case of an apparently ill-equipped feeding larva is the planula
larva of sea anemones. These larvae lack ciliary bands entirely and are
anatomically the simplest feeding larval forms, yet some of them grow
substantially before metamorphosis. In other groups of animals, larvae that
are this simple do not catch particulate food. Analyses of feeding capacity
and growth rates of larval sea anemones will indicate the capabilities of
the simplest feeding larvae. The results will indicate constraints on the
origination of ciliated feeding larvae in other groups of animals.